Society, Economy, and Built Form in Late Nineteenth Century New York City and Boston: ROW Award

An analysis of the built environment that incorporates an examination of economy and society has been heralded as a key to developing a more fundamental understanding of society and space, yet few studies have attempted such a synthesis. This project will comparatively study Boston and New York City, documenting the changing locational patterns of each city's retail and elite residential districts and analyzing a number of case studies that will serve to link landscape features with their social and economic contexts. The research will address questions such as the extent to which a city's position in an urban hierarchy is related to that city's built form; the degree to which a city's economic elite shape the urban landscape; and how the city's social structure is expressed in its landscape. By providing a detailed study of the links between economy, social structure, and built form in a historical context, and by examining both commercial and residential structures, this project will make a major empirical and theoretical contribution to our understanding of the general relationship between landscape, society, and economy. It will advance the frontier of a new cultural geography by placing landscape in a broader societal context in order to derive explanation rather than description, and it will facilitate the development of new directions in historical urban geography. It will add a spatial dimension absent from the work of urban historians and urban architectural historians, a dimension essential to explaining the evolving urban morphology of American cities.